Whitney M. Young Scholars in Science (WYSci)

The Louisville Science Center in collaboration with The Lincoln Foundation plans to: (1) establish WYSci's continuance as part of the Whitney M. Young Scholars Program, (2) extend the program to include 35 additional hours of instruction in a week-long summer program, (3) expand opportunities to involve parents and other caregivers, and (4) provide significant evaluation data. The evaluation component would be used to determine the program's effect on participating students and parents and to inform others as to what factors are important for melding informal and formal science education. The program is designed to positively affect the learning of young people in the seventh grade who are academically talented, but socio-economically disadvantaged. Over the three-year period, 150 students will receive over 50 hours of instruction by the staff.